Mathematical Problems for Nonlinear Inversion in Intermediate and High Contrast Media

9971209
Borcea

This research project will consider inverse problems for elliptic partial
differential equations with coefficients that vary substantially in the
domain of the solution. Specifically, the focus will be on imaging
electrical conductivity and permittivity of a medium, given low frequency
electro-magnetic field measurements. Such inverse problems are highly
nonlinear and pose difficult analytical and computational questions. The
research goal is to build a coherent set of algorithms and analytic tools for
imaging intermediate and high contrast media, that go beyond the usual
linearization procedure that is clearly inadequate. Towards this goal, the
following directions of research have been identified: 1) Use state of the
art, minimal variational principles in our algorithms for imaging
intermediate contrast media. 2) Develop imaging algorithms based on our
new asymptotic studies for time-harmonic electro-magnetic fields in high
contrast media. 3) Extend the asymptotic theory to problems in linear
elasticity, for media with a high volume fraction of rigid inclusions.

Imaging electrical properties of heterogeneous media finds important
applications in environmental studies such as underground contaminant
detection. The research focuses on intermediate and high contrast media
because of the known fact that the underground electrical conductivity and
permittivity can have large variations, up to orders of magnitude. One
practical way of imaging the shape of fluid plumes underground is to
make electrical or electro-magnetic measurements on the surface of the
Earth and in boreholes. The data gathered are processed in order to
estimate both the location of underground good conductors and their
magnitude. A substantial amount of work has been done for the case of
electrical, d.c. measurements. Comparatively, little work has been done on
the electro-magnetic inverse problem. Most of the results available apply
to low contrast media. Recently, we have done studies of electro-magnetic
fields in high contrast media and plan to use these studies in inversion.
The results are promising and should bring significant improvement to the
current stage of available imaging algorithms.